TIES: a Transfer Initiative for Engineering Scholars

The Transfer Initiative for Engineering Scholars (TIES) provides scholarships and support services for students transferring from two large minority serving community colleges to engineering programs at the Georgia Institute of Technology. This project builds on the success of several other student centered programs funded by the National Science Foundation. Undergraduate students transferring into engineering programs at the Georgia Institute of Technology from community colleges receive scholarships of up to $10,000 per year to overcome financial barriers of attendance. Engineering scholars receive faculty and peer mentoring, access to specialized designated teaching assistants and exposure to research laboratories and undergraduate research opportunities. Approximately 90 scholarships will be provided during the life of this project.